Dissertation Research: Impact of Social Movements for Municipal Services on Gender Relations

This research will show how activity in protests for municipal services in the Mexican city of Guadalajara affects relations between the female protesters and their male relatives. Latin culture defines female activity in terms of home and family, so this sort of public activism runs counter to the dominant norms of the culture. The project will see how men and women deal with these contradictions in their lives. Methods used include consultation with local newspaper archives, re-analysis of a household survey conducted by a local research facility, surveys of 100 households in a poor neighborhood, and intensive interviews with both participant and non-participant households. This research is important because popular demonstrations for civil services are widespread in the world (witness Eastern Europe i 1989). Understanding of the dynamics of such activity, on an individual, family, and household level can help society form policies to respond appropriately.